DG: The New Role of Science and Engineering in Risk Reduction

Ramesh Rao
University of California San Diego

"The New Role of Science and Engineering in Risk Reduction"

In February 2002, NSF funded a successful workshop in New York City, inspired by the events of September 11, to develop a research agenda related to unexpected events. Now, one year later and with the Department of Homeland Security established, the topic of homeland security is much better defined as it relates to the Federal Government and NSF. NSF is now engaged in developing a large cross-agency initiative in Cyber-Infrastructure. The workshop being funded by this grant is intended to bring the two areas of cyber-infrastructure and homeland security into juxtaposition, with the goal of developing a computer/information science research agenda within the context of homeland security, as related to cyber-infrastructure.